Pruning Techniques for More Expressive Planning

Pruning Techniques for More Expressive Planning

This is the first year funding of a two year continuing award. Solving more expressive planning problems is important because many practical problems fall in this category. It is important to be able to control search in the synthesis of these plans. This project involves development of various pruning techniques for more expressive planning. These are based on identifying various flaws in partial plans and the costs of resolving them. An efficient conjunctive planner and an efficient disjunctive planner will be modified to handle universal quantifiers, functions, metric time and continuous variables. These planners will use pruning techniques developed in this project. The results of the project will improve understanding of efficient synthesis of plans in more expressive domains like NASA's Deep Space One mission.